NUE:USE-NanoMEMS: Undergraduate Science and Engineering Workforce Education in Nanotechnology and Microsystems

This Nanotechnology Undergraduate Education (NUE) in Engineering program at the University of Wisconsin-Platteville (UWP)entitled "NUE: Undergraduate Science and Engineering Workforce Education in Nanotechnology and Microsystems (USE-NanoMEMS)", under the direction of Dr. James Hamilton, will build on the UWP existing minor in Nanotechnology and Microsystems to educate students, workers and the public in issues of Nanotechnology and Microsystems and provide a major in nanotechnology. Building on existing undergraduate research programs, the students will be able to focus on basic and applied multidisciplinary R&D in nanotechnology, as applied to solar technolgies,alternative energy and graphene device and coating technologies, as are being developed at UWP.

All future UWP engineering (currently more than 2000 students and growing) will be exposed to at least two Nanotechnology modules while taking the required Introduction to Engineering and Engineering Economics courses. The program will also be available to science and non-engineering students at UWP, especially with respect to the ethical, environmental and societal aspects of nanotechnolgy. USE-NanoMEMS will further extend to many of the 175,000 students withing the 26 campuses that comprise the UW-System through the System-wide Nanotechnology Center for Collaborative R&D that is based at UWP.